CyberAI Innovation: Workforce Development for Integrated AI and Cybersecurity in Healthcare Systems

Artificial intelligence (AI) is increasingly used in healthcare through clinical documentation, imaging triage, electronic health record analytics, and decision-support systems. Although these technologies can improve efficiency and patient care, they also introduce cybersecurity risks that are not adequately addressed in many existing education programs. Threats such as prompt injection, data leakage, adversarial manipulation, misconfiguration, credential compromise, and system intrusion can affect privacy, clinical operations, and patient safety. This project will address the associated workforce need by preparing learners to identify, prevent, detect, and respond to cybersecurity risks in AI-integrated healthcare systems.

The project will develop and evaluate a modular Healthcare CyberAI education program comprising eight modules on AI-model security, systems security, secure AI integration, identity and access management, monitoring and detection, incident response, and governance. A synthetic-data-based Healthcare CyberAI Range will simulate workflows such as AI-assisted clinical documentation, imaging triage, and electronic health record audit and risk analysis. The range will support guided laboratories, team-based exercises, and a capstone incident-response activity. The project will also produce reusable lecture materials, lab manuals, synthetic datasets, deployment scripts, assessment rubrics, and instructor guides. Materials will be disseminated as open educational resources and promoted through course integration, continuing education, and train-the-trainer activities.

This project is supported by the CyberAICorps Scholarship for Service (CyberAI SFS) program which funds proposals to increase national capacity to educate and train professionals in Artificial Intelligence (AI) or Cybersecurity, and to support their placement and retention in the CyberAI mission of government organizations. The Scholarship Track funds academic institutions to award scholarships to students in exchange for their government service. The Innovation Track seeks transformative education proposals in the areas of AI, cybersecurity, or the integration of AI and cybersecurity.